Doctoral Dissertation Research in Geography and Regional Science

Closed basin coastal landforms and sediments provide excellent opportunities to study past environments and processes. This is often essential for more realistic regional-scale modelling of paleoclimates. The Great Basin of the western United States comprises numerous closed basins separated by towering mountain ranges. At present, most of the basins are dry or contain only shallow ephemeral lakes. During the late Pleistocene, deep lakes occupied many of these basins, and they left abundant geomorphic and stratigraphic evidence. The subsequent arid environment of the Great Basin left well- preserved evidence unobscured by vegetation. This paleolake evidence can provide excellent clues to the temporal and spatial variability of coastal processes and landforms, lacustrine chronologies, and hydro-isostatic deflection of the basins. This project will study one such basin in Nevada. It will be the first detailed analysis of lacustrine landforms and vectors of sediment erosion, transportation, and deposition, and it will reconstruct the lacustrine chronology for comparison with chronologies from Lake Bonneville. Spatial aspects of the study will rely upon topographic map, aerial photograph, and remotely sensed imagery interpretation in addition to field study and geographic information system analysis. The temporal framework will be tested with radio carbon dating and amino acid analysis. These methods should enable reconstruction of basin and shoreline characteristics to fill out the chronological record. This research will fill in an important chapter in the paleoclimate record of the intermediate region between Lake Bonneville and Lake Lahontan. Research on such arid, closed- basin environments is not extensive; thus this project will support paleoclimatic modelling of the Great Basin, enhance ongoing archaeological studies in the Basin, and further elucidate the far field effects of Lake Bonneville's hydro- isostatic deflection.